EPP 2010: ELEMENTARY PARTICLE PHYSICS IN THE 21st CENTURY

On behalf of the National Academy of Sciences, Dr. Shapero proposes to organize a committee to perform a study titled "Elementary Particle Physics in the 21st century. The purpose of the study is to provide a roadmap needed to guide the future of elementary particle physics. All of the evaluators regard the study important and well deserving of support.